(CISE) Research Instrumentation

A shared - memory multiprocessor will be provided for researchers at Kent State University for research in the Department of Mathematical Sciences. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of: Parallel Algorithms and Implementations for Symbolic Computations Automatic Parallel Code Generation Parallel Algorithms for the Numerical Solution of Linear Systems Parallel Computing for Engineering Applications Multiprocessing Languages and Operating Environments